SGER: Ground-Based Remote Sensing for Mapping of Dinosaur Bones

Dr. David Gillette, the State Paleontologist of Utah, is currently involved in the excavation of "Seismosaurus", an as-yet undescribed sauropod dinosaur discovered in central New Mexico. Current estimates suggest that this individual may measure 140' in length, roughly half again as long as the largest known dinosaur. This well-preserved specimen is the first articulated sauropod dinosaur discovered in many decades, and study of the specimen, once excavated, will shed new light on the size limits on terrestrial animals. Excavation of this dinosaur skeleton has been aided by several new remote sensing techniques (ground- penetrating radar, scintillation counting, magnetometry, and seismic diffraction tomography), under development at Los Alamos National Lab. These exploration tools are being developed to help locate buried containers of toxic waste and other hazardous materials, and the only way to test their accuracy and reliability is to excavate the dinosaur. The proposed excavation has the potential for profound impact on our understanding of dinosaurs, and the size limits of terrestrial life. The project may have the added benefit of helping efforts to dispose of hazardous waste materials.